Subcommittee on Construction and Building, National Science and Technology Council

9422147 Wright The award will be used in support a cooperative agreement and contract with the Civil Engineering Research Foundation to hold a workshop and develop and print the Private Sector Program Plan for Advanced Technologies for Constructed Facilities. Other Federal agencies with representatives in the NSTC/CCIT Subcommittee on Construction and Building are being asked to provide similar funding in support of the workshop, the private sector plan, and other aspects of the work of the Subcommittee.